Studies in Elementary Particles

This grant covers experimental Elementary Particle Physics Research on the constituent structure of matter by a group at Johns Hopkins University in collaboration with other NSF and DOE supported scientists. The group will continue studying proton-antiproton annihilation as a member of the CDF collaboration at Fermilab. The group will continue these studies to the highest possible energies at the Superconducting Super Collider. They will also continue research and development of silicon microstrip particle detectors at Johns Hopkins University.